Many-Body Collision Dynamics Involving Particles and Antiparticles

This proposal outlines a project to study the dynamics of the fundamental, but unsolved, many-body problem. Atomic collisions represent particularly suitable systems for studying the many-body problem because intermediate particle numbers (3-10) between two-body and bodies with very large particle numbers can be precisely selected. Highly differential and kinematically complete experimental studies on single and multiple ionization processes by positron, electron, proton, and highly charged ion impact will be performed. Thus, direct comparisons for such processes between particles and antiparticles under otherwise the same conditions will become possible. State-of-the-art technologies will be combined in multi-parameter coincidence experiments to simultaneously measure the momentum vectors of n-1 of the n collision products of the few-body systems.